COLLABORATIVE: A Gaming Environment to Teach Students About Complex Distributed Systems.

Computing Science (31)

Complex distributed systems are critical in the modern computing experience, yet many undergraduate computing curricula give students little exposure to the full complexity of these systems. Investigators have developed a prototype gaming environment, called DWORLD, to provide students more realistic experiences with distributed systems. The current project extends the capabilities of this environment. Students compete by addressing a variety of issues in a virtualized distributed system in order to keep the system healthy and operating normally. Game scenarios are designed to enhance student skills and knowledge of key concepts such as scalability, robustness, fault-tolerance and the ability to build a distributed system. Expected outcomes include a software package that can be easily adopted by other faculty and a collection of lab modules and assignments.

The game is being piloted in undergraduate courses at Polytechnic University of New York and CUNY Brooklyn College. Workshops are used to train faculty how and why to use the gaming environment in their courses. As part of a broader context, the project assesses the potential for games as an important tool in STEM education.